CAREER:Methods and Challenges in Discrete Mathematics

This proposal outlines a challenging career developments plan focusing
on several fascinating problems in Discrete Mathematics. Specific areas in
which PI plans to work include Ramsey Theory, Graph colorings, Extremal
Combinatorics and Random and pseudo-random graphs. Furthermore the author
plan to study application of all these areas to Theoretical Computer
Science. The main tools which are going to be used in this investigation
combine combinatorial techniques, probabilistic methods, tools from Linear
Algebra and spectral techniques amongst the others. First group of
questions in this proposal deals with Ramsey numbers. The author wants to
bound these numbers for sparse graphs, i.e., graphs in which every
subgraph has bounded average degree. Here the goal is to show that such
graphs have Ramsey numbers which grow linearly in the size of the graph.
An additional topic is to study various extremal problems. In particular
to obtain extensions of classical Turan's theorem and prove better bounds
on the Max Cut in the graphs with forbidden subgraphs. Some of these
problems were posed many years ago by Erdos, and despite all efforts are
still open. Another set of questions deals mainly with the study of the
chromatic and choice numbers of graphs. Usually there is a huge gap
between these two parameters, so one of the goals in this proposal is to
understand the graphs for which chromatic and choice numbers are equal.
Finally the PI also intends to study the asymptotic properties of random
and pseudo-random graphs which is one of the central topics in
Probabilistic Combinatorics.

Concepts and questions of Combinatorics appear naturally in many
branches of mathematics, and have also found applications in other
disciplines. These include applications in Information Theory and
Electrical Engineering, in Statistical Physics and Molecular Biology, and
most notably in Computer Science. The PI is convinced that progress in the
problems he discusses will be interesting and significant, and will lead
to new developments in Discrete Mathematics. He believes that the new
approaches and techniques resulting from this project will be applicable
and useful in other fields as well. The author also proposes a wide range
of educational measures closely related to his project. He plans to
develop a series of courses for senior undergraduate and starting graduate
students, which will serve as a gentle introduction to the variety of
powerful methods in modern Combinatorics. Part of these courses will be
closely related to the research problems in this proposal. Along the
course, the author plans to integrate research activities into the
teaching by introducing open questions that will motivate the students to
undertake research on these fascinating topics, which can lead to a B.A.
thesis or Ph.D. dissertation.